Synthesis and Characterization of Magnetic Alloys Based on Expanded Phases

9614596 Yelon This research explores the stability of substitutional- interstitial magnet compounds. New compounds which are doubly substituted (using an OatlasO to guide the atom selection) will be prepared and characterized. In addition the research advances from 2-17 phases to 1-12 and 6-23 phases. In prior work neutron diffraction and Mossbauer techniques were used to investigate a large number of magnetic alloy systems, and from this effort an "atlas" for the location of substitutional atoms in the R2Fe17 lattice was developed. The details of the changes in Fe-Fe bounding were followed in this system and in interstitially modified compounds. It became clear that not all of the effects on Curie temperature could be attributed to magnetovolume effects, and associated theoretical modeling contributed to better understanding of these compounds. It was observed that introducing interstitial carbon by induction or arc-melting during the materials synthesis leads to a modification of the substitutional occupancy patterns, and this could result in enhanced stability of interstitial compounds. This research is extended to novel interstitial compounds in which the interstitial atoms are incorporated from the gas phase (e.g., SiH4, B2H6) or from the melt in which the interstitial atom is tightly bonded to the substitutional atom (e.g., TiB, VC). The research now makes use of photoemission measurements of the electronic density of states to compliment the other experiments and test the theoretical calculations being carried out by collaborators. %%% The substitutional-interstitial magnetic compounds under investigation here show potential for magnet applications. The research is building improved understanding for optimum design of the atomic structural of magnetic materials. ***